International Conference on Congo Basin Hunter-Gatherers

This award to Dr. Barry S. Hewlett (Washington State University) provides support for the International Conference on Congo Basin Hunter-Gatherers, being held in Montpellier, France, in September 2010. Research on Congo Basin hunter-gatherer peoples (formerly referred to as "Pygmies") has increased dramatically in recent years, in part because they comprise the largest remaining hunter-gatherer groups in the world. It is also a critical time for Congo Basin hunter-gatherers, who are being marginalized culturally and economically by the increased market integration of central Africa, and by the creation of national game parks and reserves on their traditional lands.

This conference is being convened because there is no other interdisciplinary venue for sharing research results internationally. Researchers at the conference will present their findings on a wide range of topics, including: the culture histories of Congo Basin hunter-gatherers; hunter-gatherer relations with nearby farming societies; the socialization of hunter-gatherer children into egalitarian sharing and traditional knowledge systems; and theories of intracultural and cross-cultural diversity among hunter-gatherers. The conference will also address broader issues such as: the bushmeat trade, indigenous peoples views of climate change, and the impacts of conservation and human rights non-governmental organizations on local people. A variety of qualitative and quantitative research methods are utilized to address the applied issues and answer the broad range of research questions.

This conference is important because it will contribute significantly to understanding the hunter-gatherer way of life that characterized most of human history. It also will provide a research foundation to implement culturally sensitive and appropriate assistance tom marginalized hunter-gatherer peoples. In addition, the conference will promote international research collaboration and capacity building by including researchers from Africa, Asia, the Americas, and Europe. Additional financial support is being provided by the Japan Society for the Promotion of Science, Kyoto University (Japan), the Institut de Recherche Pour le Développement (France), the Centre National de la Recherche Scientifique (France), Center for Fonctional and Evolutionary Ecology (France), and Washington State University.